NBER/Yale for Global Change

The NBER/Yale Center for Global Change is designed to further the study of problems of the environment with particular attention to the international dimension, to linking economics and other social sciences, and to bringing together American and foreign researchers in the social sciences working on human dimensions of global change. The project will encourage the creation of an `invisible college` which encompasses two major elements: (1) it will bring together active researchers from U.S. research organizations under the umbrella of a National Bureau of Economic Research (NBER) project; and (2) it will generate substantial domestic and international cooperative research through conferences and workshops. These meetings will bring together U.S. and foreign researchers under the auspices of Yale University, the NBER, and the International Institute of Applied Systems Analysis (IIASA) in Austria. The NBER has long served the role of encouraging collaborative research among different institutions. This function is particularly important for research in the human dimensions of global change because of its broad scale, international scope, and interdisciplinary nature.